Composite Systems in QED and QCD: Spectra, Decays and Production

Research centers on bound states in QED and QCD through the study of spectra, decays and production. Major effort will be on the Lamb shift in hydrogen with the goal of extracting the .2(Z.)5m contribution thus completing the calculation to about 1 kHz accuracy. Work will also be initiated on heavy quark/anti-quark systems including relativistic and coupled channel effects. Leptonic widths and production processes for charmonium will be calculated and finally, QCD corrections to the production of states examined.